Modelling Imprecision with Support Logic Programming (Computer and Information Science)

The thrust of this research is to investigate how statements containing imprecise quantifiers can be represented in a form suitable for computation. The treatment of these quantifiers is done in the framework of support logic programming which can be viewed as a generalization of both probability and fuzzy set techniques. Also addressed in this research are the need to incorporate (imprecise) quantifiers in the support logic programming, the problems that arise when such an attempt is made, and the methods which could lead to possible solutions. The goal of this project is twofold: on a theoretical level the PIs seek to develop a systematic way of dealing with (imprecise) quantifiers and possibly give an axiomatic treatment of this subject. At the application level the PIs intend to actually develop the software necessary to augment the existing support logic programming system by incorporating a quantifier handling module.